Stochastic Systems and Control

0204669
Duncan

The major focus of this research is the application of a stochastic
calculus for a fractional Brownian motion to stochastic systems,
especially for the problems of identification and control. The
importance of a fractional Brownian motion in stochastic models
has been exhibited in a wide variety of applications, such as,
hydrology, economics and telecommunications. One goal of the
research is to develop further a stochastic calculus for a fractional
Brownian motion similar to the way that the stochastic calculus for
Brownian motion was developed to provide the tools for solving
problems of stochastic systems with a fractional Brownian motion.
Some tools of stochastic calculus that are planned for development
are necessary for solving the problems of identification, filtering
and control of a stochastic system with a fractional Brownian
motion. The fractional Brownian motions for study include
processes with values in both finite and infinite dimensional
spaces. The study includes the existence and the uniqueness of
solutions of stochastic differential equations and stochastic partial
differential equations with a fractional Brownian motion and
martingales that are formed from a fractional Brownian motion.
Another family of stochastic models that are planned for study is
hidden Markov models. An investigation of adaptive control for
systems described by both fractional Brownian motions and hidden
Markov models is planned.

This research focuses on a stochastic calculus for a fractional
Brownian motion. A fractional Brownian motion is a stochastic
process that has been important in modeling physical systems such
as those arising in hydrology, economics and telecommunications.
Stochastic calculus provides the basic tool for solving problems of
stochastic models that contain a fractional Brownian motion.
Fractional Brownian motions have a self similarity property and
many have a long range dependence property that often occur in
physical phenomena. It is planned to study the control of partially
known systems that contain fractional Brownian motion and
hidden Markov models. Such control problems naturally arise in
applications.